1993 Gordon Research Conference on Atomic Physics; Wolfeboro, New Hampshire, July 5-9, 1993

9315931 Cruickshank Dr. Cruickshank will provide organizational support for the 1993 Gordon Conference on Atomic Physics. ***